International Conference on Separation Technology to be held in Hawaii, U.S., October 20-25, 1991

The International Conference on Separations Technology will be held in Hawaii, U.S., October 20-25, 1991. The conference, sponsored by the Engineering Foundation, will bring together scientists and engineers drawn about 50% from the United States and 50% from the Pacific Rim countries, Europe and the rest of the world. The format of the conferences is eight half-day oral sessions, covering five days, along with the poster sessions. About 32 invited papers will be presented orally, along with at least as many posters. The objectives of this conference are threefold: 1) to disseminate the latest research results; 2) to define the direction of future separations research; and 3) to promote U.S. and other countries dialogues and collaboration in various important separation research areas. The conference is of considerable importance to the U.S. for a least two reasons. First, separations are crucial to a number of the most pressing needs and opportunities for the U.S., including development of alternative sources of energy and chemicals; protecting and improving the environment; commercial development of biotechnology; reduced dependence upon foreign sources of critical minerals and metals; and achieving the high degrees of purification needed for electronic materials, food, and pharmaceuticals. Secondly, there is much forefront research in Japan, Australia and in Europe on separations, and the conference affords, and the conference affords U.S. scientists and engineers the opportunity to learn about and utilize these developments.